Engineering Research Equipment Grant: Empirical Vertificat-ion of Dynamically Sound Task Encoding Methodology

A methodology for robot task encoing is being explored. Empirical evaluation of this methodology requires acquisition of a robot, a computer, and related equipment. The research seeks to establish task encoding methods which are dynamically sound.